CAREER: Comprehensive Investigation of the Molecular Mechanisms of Bacterial Manganese Homeostasis

Manganese is an essential nutrient for bacteria. It helps bacteria defend against harmful molecules that are part of the human immune response. However, too much manganese is toxic. Unlike nutrients such as sugars or vitamins, bacteria cannot produce manganese. It must be imported from their environment. As a result, they must carefully control how much enters and leaves the cell. To maintain this balance, bacteria use specialized proteins that collaborate to reduce uptake when manganese levels are high and remove excess metal to prevent toxicity. This project will elucidate the molecular details of such collaboration. The work will use structural biology and biochemistry to study how bacterial proteins control manganese levels and influence bacterial virulence. Obtention of the detailed molecular structures of these bacterial proteins will aid the future design of more precise drugs that target harmful pathogens. This will allow the biotech industry to produce new treatments for serious infections to improve public health outcomes. The work will also improve STEM education at primarily undergraduate institutions. It will expand access of undergraduate students to advanced structural biology techniques. These activities will prepare them for jobs in the research and biotech workforces. This project advances NSF’s priorities in Biotechnology.

This project aims to develop a comprehensive understanding of manganese homeostasis in bacteria by structurally and functionally characterizing the network of manganese influx and efflux proteins from Bacillus subtilis as well as the mechanism of regulation of their expression and function by the dual metallosensor protein, MntR and other metal ions such as zinc and iron, respectively. To achieve this goal, the work in the project will use a combination of structural biology techniques including single-particle cryogenic-electron microscopy (cryo-EM) and X-ray crystallography coupled with functional assays such as in vivo transcription assays, in vitro solution experiments (e.g. mass photometry) and metal ion transport assays on influx and efflux proteins reconstituted in proteoliposomes. By investigating the molecular mechanisms of manganese sensing, capture, and translocation at atomic resolution, this research will provide molecular insights into the larger family of such transporters (e.g. ATP binding cassette and Cation Diffusion Facilitator proteins) and transcription metalloregulators across bacterial species and their interplay with other metal homeostatic pathways. This research also has tremendous downstream potential for applied science, e.g. in the design of microbial biosensors engineered to track Mn pollution in soil as well as have immediate impact on the broader field of bioinorganic chemistry and metal homeostasis.